Laude Institute Moonshots Initiative

The High-Impact AI Moonshot Labs initiative, led by Laude Institute, is designed to translate frontier artificial intelligence research into concrete, real-world solutions for our most pressing societal challenges. By engaging a world-class evaluation committee to rigorously select the most promising research agendas, we have identified eight finalist teams—drawn from 125 proposals and over 600 principal investigators, including Fields Medalists, Turing Award recipients, and Nobel laureates—prepared to launch high-impact laboratories focused on accelerating scientific discovery, advancing frontline healthcare, strengthening civic discourse, and enabling workforce reskilling.

This initiative is a strategic partnership with the NSF Directorate for Technology, Innovation, and Partnerships (TIP) to co-fund these laboratories, thereby multiplying the impact of philanthropic capital and accelerating the delivery of transformative technologies. The initiative builds on proven principles of high-impact research—emphasizing multidisciplinary collaboration, tangible artifact building, and time-bound goals—to ensure that the next generation of AI research is not just academically rigorous, but actively deployed to improve lives, secure American technological leadership, and deliver broad societal benefit.

The activities supported by this award have a significant chance to advance national priorities, bolster regional economic growth, and advance technological progress.

Investment in this project is both consistent and well-aligned with the goals and broad strategic objectives of NSF TIP. This investment is consistent with agency’s goals and the scientific and technological community’s interest in accelerating the adoption of AI applications in high-impact sectors.